RUI - Upgrade OF X-Ray Diffraction Capabilities at the South Dakota School of Mines and Technology

Qualitative and quantitative x-ray diffraction analysis plays a very significant role in atmospheric, geological and material science undergraduate and graduate programs on the South Dakota School of Mines and Technology campus. This award provides partial support for purchase of a state-of- the-art x-ray diffractometer, including automation controls and software allowing rapid processing of x-ray data for qualitative and quantitative analysis. This system will replace a out dated diffractometer currently in use which does not provide sufficient capabilities to be competitive in all areas of research and service to classes. A number of research programs will be serviced by the new equipment including the chemical characterization of atmospheric particulates matter, and a number of earth science projects where identification and quantitation of mineral species is important to an understanding of geochemical and petrologic processes. Both undergraduate and graduate students will play a significant role in the accomplishment of the research objectives of these programs.